The Magic School Bus: A Children's Science Television Series

9626824 Gotthelf This grant provides support for Season IV of The Magic School Bus, the fully animated PBS series targeted at youth ages 6-9. Components of Season IV will include 13 new episodes, educational support for teachers and youth leaders, dissemination and presentations at major educational conferences, promotion, and summative evaluation. The new programs will bring the total number of programs to 54 making it possible to broadcast the series as a daily strip without undue repeat broadcast which might cause the series to loose its freshness. All of the current principal staff of the project will remain for the fourth season. Cheryl Gotthelf will be PI and Executive Project Director. Jane Startz will be Co-PI and Executive Producer for the series and Michael Templeton will be a Co-PI and Science Content Director. Kristin Martin will continue as Supervision Producer.